Live @ the Exploratorium: Origins

9980619
SEMPER

The Exploratorium requests $1,389,665 to develop "Live @ the Exploratorium: Origins." The Exploratorium will conduct a three-year pilot project to develop an experimental series of Webcasts, related Web-based resources, and museum activities . The project will use new communications technologies to create an ongoing link between Internet and museum audiences and current scientific research efforts at observatories around the world where scientists are investigating the origins of matter, the universe, the Earth, and life itself. The Exploratorium will establish a remote connection to six science research locations investigating particle physics, cosmology, polar research, earthquake research, astrobiology and genetics. During each live Webcast museum visitors and Internet visitors will be able to interact with scientists at the remote observatories.